Special Graduate Student Research Award

Awardee will undertake graduate study in Engineering under the Special Graduate Student Awards Program. This program provide one-time support for those persons who have demonstrated ability and speical aptitude for advance training in enigneering and who received "Honorable Mention" in Engineering in the FY 89 Minority Graduate Fellowship Competition.